Workshop on Statistical Analysis of Neural Data (SAND)

The workshop Statistical Analysis of Neuronal Data (SAND5) is planned for May 20-22, 2010. SAND5 will bring together neurophysiologists, statisticians, physicists, and computer scientists who are interested in quantitative analysis of neuronal data. There will be 5 scientific sessions, at which 8 keynote investigators and 16 junior investigators will speak. There will also be a poster session. Selected papers will be published in the Journal of Computational Neuroscience.

Statistical Analysis of Neuronal Data is the fifth workshop in a series that began in 2002. The workshops are held in even years at Carnegie Mellon University during the Spring. The primary objectives of the workshop are to define important problems in neuronal data analysis and useful strategies for attacking them; foster communication between experimental neuroscientists and those trained in statistical and computational methods; and provide further dissemination of the findings presented at the workshop via a set of peer-reviewed articles. Secondary objectives are to encourage young researchers, including graduate students, to present their work; expose young researchers to important challenges and opportunities in this interdisciplinary domain, while providing a small meeting atmosphere to facilitate the interaction of young researchers with senior colleagues; and include as participants women, under-represented minorities and persons with disabilities who might benefit from the small workshop environment.